Complex manifolds and algebraic dynamics

Complex Manifolds and Algebraic Dynamics

C. McMullen

DMS-0245419

Abstract

This project investigates the behavior of
dynamical systems in settings where the methods of complex analysis
and algebraic geometry can be brought to bear.
The core of the proposal focuses on three types of
area-preserving dynamical systems:

* Automorphisms of algebraic surfaces,
* Polygonal billiards and
* Planar fluid flow.

Analysis of the rich and still mysterious structure of
these systems entails many methods, ranging from estimates
for differential equations with minimal smoothness to rigidity results
for Lie groups acting on bundles over the moduli space of Riemann surfaces.

From meteorology to robotics, from fluid mechanics to
quantum field theory, the control and prediction of dynamical systems
plays a central role in science and technology.
This project will include computer explorations of mathematically simple
systems that exhibit rich combinatorial structure
and universal analytic features. Its aim is to
advance the theoretical understanding of dynamics
and geometry.